EMSW21-RTG: Unified Approach to Training in Geometry

Abstract

Award: DMS-0636557
Principal Investigator: Daniel S. Freed, Sean M. Keel,
Lorenzo A. Sadun, Karen K. Uhlenbeck

The UT Geometry Group Research Training Grant is a vertically
integrated program to enhance the training of undergraduates,
graduate students, and postdoctoral associates at the University
of Texas and, through publication on the web, beyond. The nine
faculty members of the Group will initiate new activities at all
levels. Included is a new distinguished lecture series,
Perspectives in Geometry, which will be widely disseminated. The
Geometry Group at UT has long taken a unified perspective on the
field. Our seminars reflect our approach: they include a healthy
mix of ideas from algebraic geometry, differential geometry,
global linear and nonlinear analysis, representation theory, and
topology. Often concepts and inspiration from theoretical
physics play a role as well. The RTG training activities are
designed to promote this view of geometry and, more broadly, of
mathematics and science to young mathematicians.

Mathematics, the study of Number and Space, lies at the
foundation of science and technology. Geometry, the study of
Space, has long had connections with and applications to the real
world. In the ancient world measurement was introduced to
facilitate commerce; more advanced concepts, such as
trigonometry, were introduced to understand the stars. In our
modern world advanced ideas in Geometry underlie abstract
theories in physics and also have more immediate practical
implications, for example in coding theory, computer graphics,
etc. Effective training of the next generation of Geometers is
vital for the continued development of this field, both within
mathematics and for external applications. The University of
Texas Geometry Group Research Training Grant (RTG) promotes a
unified view of the field. Through local activities in Austin,
and via dissemination on the web, the RTG will enhance training
at all levels.